Institute for Science and Technology

9454331 Rush Eagle-Union Community School Corporation Institute for Science and Technology This 48 month project provides five-week institutes for 290 inservice and 40 preservice teachers of grades K-12. The goals of the project are to provide pedagogical and philosophical foundations for improving science education, develop strategies for increasing student learning of science, and develop a significantly improved delivery system to encourage creativity, problem solving, critical thinking, and communications. The project has four activities. The first is the Institute for Science and Technology. Through these summer institutes, teachers take two years to get fully trained and integrate technology into the curriculum. The second is the internships and mentorship program offered at places like the Indianapolis Zoo and Lilly Research. A third component is the "Teacher in Residence" who is selected each year to work with the project. Finally, there is a complementary preservice component with Purdue University that is funded locally. Fifty teachers are selected in the first year form Project INSITE. They receive 5 weeks of training over the two summers. This includes formal training in science, work experience, research experience, training on the Internet and telecommunications, etc. Several of these teachers will be selected to help as trainers for subsequent groups each of eighty teachers. Participants are initially from Indiana. Cost sharing is 30%.